U.S.-Australia Joint Workshop on the Structure of Monolayers at the Air/Water Interface / Heron Island, Queensland / February 1994

9320026 Knobler This award will support the participation of nine U.S. scientists to take part in a workshop on the structure of monolayers at the air/water interface to be held at Heron Island, Queensland, Australia in February 1994. The American coordinator is Prof. Charles M. Knobler from the Department of Chemistry, University of California, Los Angeles. The Australian organizer is Dr. G. T. Barnes, Department of Chemistry at the University of Queensland. This project is being conducted under the U.S.-Australia Cooperative Science Program and support in Australia is provided through the Department of Industry, Technology and Regional Development. (DITARD). The workshop will focus on the application of optical techniques to the determination of the structures of insoluble monolayers at the air/water interface. The availability of bright synchrotron x-ray sources and pulsed neutron sources has made it possible to carry out diffraction and reflection measurements on interfacial layers. American investigators have been involved in much recent work on the structures of monolayers; Australian scientists have done notable work on monolayers, largely classical due to the lack of easy access to synchrotron and neutron sources. This situation has now changed with the purchase by the Australian Government of a beam line in Japan. The workshop will be conducted in a Gordon Research Conference style. In addition to the Australian and American participants, two scientists each from France, Germany and Great Britain will also be taking an active role in this workshop.